Research Equipment: Pump for Thermodynamic Flow Calorimeter

A double-cylinder, opposing transmission, proportioning positive displacement pump is being acquired for use in providing a constant, accurate flow calorimeter system. The calorimeter is presently used to measure the enthalpy of model compound mixtures exhibiting effects of association present in coal-derived liquids. The current system under study is the m-cresol, quinoline, tetralin ternary system. Measurements are obtained at elevated temperatures (700K) and pressures (13MPa) where experimental data for higher boiling fluid systems are very scarce. Development of an automated flow calorimeter system is currently underway. It is anticipated that this calorimeter will greatly simplify the data collection effort. This will result in the development of a data base for those fluids, such as polar associating liquids, for which correlation methods are not available.